Upgrading the AMS Facility at Prime Lab

This award provides funding for the acquisition of several items of equipment for the Purdue Rare Isotope Measurement Laboratory or PRIME Lab. PRIME Lab operates a tandem Van de Graaff accelerator devoted primarily to geoscience applications of radioactive dating and the use of extremely rare cosmogenic nuclides as tracers to explain processes of weathering, groundwater circulation, soil formation, sedimentation, crustal subduction, and extraterrestrial impact phenomena. The equipment to be obtained through this award includes a new charging belt and a cryopump for the accelerator.